Research Initiation Award: Utilization of Genetic Engineering and Affinity Separations to Improve Peptide Production

The objective of the proposed research is to develop new methods which utilize recombinant DNA technology and affinity separations to produce peptide (small proteins) effectively. Emphasis will be placed upon improving two complex parts of the purification process: 1) removal of cell debris, and 2) final purification to high purity. The peptide, human atrial natriuretic peptide, will be expressed fused to the protein asparaginase in the bacterium e. coli. The fusion protein will also contain a metal affinity binding site (MABS), which will be utilized in selectively removing the fusion protein from the cell debris. Two different MABS and two different locations of each MAB on the fusion protein will be evaluated. Final purification of the fusion protein will be by affinity chromatography on immobilized D-asparagine. The significance of the proposed research is that it can lead to new processes for producing peptide at significantly lower cost and on a much larger scale than at present. The research is also significant in that it can lead to a better understanding of how to design a MABS on proteins, which would be useful in the purification of proteins as well as peptide.